Flexible Statistical Modeling

This project studies methods for analyzing large datasets using L1 and
related regularization. Coordinate descent algorithms are developed to
provide entire families of solutions for L1 and more aggressive
concave penalized regression problems. Applications include
generalized linear regression models for very wide datasets, and
structure-finding algorithms for undirected graphical models. L1
regularization is used as well to develop efficient convex algorithms
for finding low-rank approximations (SVDs) to extremely large,
sparsely populated matrices.

This project develops tools with a wide variety of applications,
illustrated here in medicine and merchandising. Modern technologies in
genomics produce measurements of half a million or more
genotypes at particular locations (SNPs) along an individual's genome
in a few hours. Armed with such measurements on a few thousand
individuals, some sick and some healthy, this project develops
powerful statistical tools for identifying groups of SNPs associated
with diseases such as Alzheimer's or breast cancer. Online movie
renters or book buyers are often asked to rate their
purchases. Although each individual sees a minuscule fraction of the
selections available, the investigators are able to develop
recommender systems that exploit the overlap to learn genres of
movies, and assign viewers to like-minded cliques, and which allow
them to make recommendations for products not yet seen.